Qualitative Properties of Nonlinear Differential and Integral Equations or Systems

DMS-0401174
Title: Qualitative properties of nonlinear differential and
integral equations or systems

PI: Congming Li (University of Colorado, Boulder)

ABSTRACT

The PI will study qualitative properties of solutions for nonlinear integral
and differential equations or systems, especially those arising from physical
sciences or from differential geometry where the physical or geometrical
background provides very strong intuitions. Research of this type is
fundamental in the understanding of many physical and geometrical problems.
Many aspects of natural phenomena are related to each other by the natural
laws governing them and very often these relations are mathematically
described by differential or integral equations. The study of these equations
is very important in understanding the related phenomena. It is often the case
that to solve differential equations computationally with sufficient accuracy,
the most effective and economical way is to exploit the properties of
solutions of the equations and then to develop algorithms in accordance.
Besides being very useful in applied science, the study of various kinds of
structures and properties of solutions to various types of equations
invariably leads to new research endeavors.

In particular, the PI's will continue the development of a class of very
powerful techniques, namely the Method of Moving Planes for both differential
and integral equations or systems, to the calssification and quantization of
solutions to various fundamental systems of equations, to the study of local
asymptotic symmetry of singular solutions and a priori estimates of solutions.
The PI will also continue the joint work with W. Chen on the geometric problem
of finding a conformal metric with a prescribed Gaussian or scalar curvature.
The PI is also involved in the study of certain parabolic systems arising form
other branches of sciences. The center problem the PI will study is the
fundamental Hardy-Littlewood-Sobolev inequalities including the weighted
version of them. These inequalities are the most important ingredients in the
study of Sobolev spaces and are extremely important in the study of nonlinear
elliptic and parabolic partial differential equations. The first task will be
the classification of all regular critical points of the functional associated
with these inequalities. The second is to study the singular critical points.
Further developing the method of moving planes in both differential and
integral forms is essential for making progress in the above two tasks and is
interesting in its own.